Calculus, Linear Algebra, and ODE's in a Real and Complex World

9352828 Wattenberg Being continued is the development, dissemination, and assessment of an integrated two-year sequence to replace five courses-- Calculus I, II, and III, Linear Algebra, and Ordinary Differential Equations. The motivating idea driving and project is that these subjects should be taught in the context of real and engaging problems. By studying these subjects in context, students are better able to understand them and to use them outside the mathematics classroom. Pedagogically, the most important feature of this sequence is the participation of students at a higher level than is typical of traditional courses. Emphasized are very substantial and realistic problems that require the application of a combination of mathematical techniques and that are open-ended, often without clean, simple solutions. Computers and writing are essential parts of the approach. Computers make it possible to deal with more realistic applications and facilitate the experimental approach that is emphasized. There is a synergy between writing and meaningful problems that engages on a high intellectual plane requiring them to understand and articulate the mathematics, the applications, and the connections between them.